S-STEM: Scholarship to Educate and Mentor Mathematics Students

This project will contribute to the national need for well-educated scientists, mathematicians, engineers, and technicians by supporting the retention and graduation of high-achieving, low-income students with demonstrated financial need at the University of Texas at Arlington. A total of 40 scholars pursuing undergraduate degrees in the mathematical sciences will receive scholarships averaging $10,021 for up to five years. Scholars will receive faculty and peer mentoring, and the project will build strong scholar cohorts through biweekly meetings, participation in mathematics contests, community service, and the department’s large and active student chapter of the Mathematical Association of America. Additional activities for scholars include career mentoring from working professionals, targeted support in key courses, and specific training to build key job skills.

The overall goal of this Track 2 Scholarships in STEM project is to increase STEM degree completion of academically talented, low-income undergraduates with demonstrated financial need. There is a significant national need to grow the STEM workforce and nurture key talent that will ensure economic competitiveness and provide domestic leadership across critical sectors. This project directly speaks to this need by supporting STEM student success, which will strengthen the workforce in mathematics, statistics, and other key areas of need. The project will be assessed by an experienced evaluator and the data generated will contribute to the knowledge base regarding effective strategies to support talented, low-income students in STEM. This project is funded by NSF’s Scholarships in Science, Technology, Engineering, and Mathematics program, which seeks to increase the number of academically talented, low-income students with demonstrated financial need who earn degrees in STEM fields. It also aims to improve the education of future STEM workers, and to generate knowledge about academic success, retention, transfer, graduation, and academic/career pathways of low-income students.